Catalytic Functionalization of Primary Aliphatic Alkylamines using Bio-Inspired Dicobalt Complexes

In this project, Professor Dong Wang of the Department of Chemistry and Biochemistry at the University of Montana is studying how a class of molecules known as primary aliphatic alkylamines can be most efficiently converted to other useful chemicals. This transformation is an important step in many biological and synthetic processes that utilize aliphatic alkylamines as an abundant feedstock and versatile building block. Built upon a novel and unprecedented reactivity recently discovered by the Wang lab, Dr. Wang and his group plan to investigate cobalt complexes as catalysts for these reactions and to develop strategies that expand the scope of the chemistry. Once successful, this project will offer a catalytic system that functionalizes primary aliphatic alkylamines efficiently with respect to energy and materials. Furthermore, this project will establish a new outreach program called “Substance Use, Prevention, and Education Research (SUPER)” to educate Montana middle school and high school students about substance use and addiction prevention from a chemistry perspective.

Professor Dong Wang of the Department of Chemistry and Biochemistry at the University of Montana is studying catalytical functionalization of primary aliphatic alkylamines upon activation of their C−NH2 bonds using bio-inspired dinuclear cobalt complexes. Aliphatic alkylamines are abundant feedstocks and versatile building blocks for a variety of important biological and synthetic transformations; however, the conversion of C−NH2 bonds to other functionalized moieties is generally a difficult process. The Wang lab has recently discovered that a high-valent bis-mu-oxo Co(III,IV)2(O)2 diamond core complex can carry out direct activation of the C−NH2 bonds in primary aliphatic alkylamines without 1) any pre-activation step and 2) oxidation of other components of the substrate including weak C–H bonds. Built upon this success, in this project, Dr. Wang and his group plan to develop the catalytic system and gain a broader and deeper understanding about this novel reactivity by investigating its site-selectivity, expanding the scope of the functional group, and employing non-covalent pi-pi interactions to enhance substrate binding. Once successful, this research will generate new insights to develop more effective bio-inspired catalytic systems for novel organic transformations with valuable synthetic utility.